Dynamics of Near-Equatorial Flows: Simple Numerical Experiments

This project will address the dynamics and relationship of the western boundary current and zonal currents near the equator using numerical models of ocean circulation in an idealized configuration. A nonlinear, equatorial version of Gill's dam break experiment will be performed in a hierarchy of three different numerical models: a single layer reduced gravity shalow water model, a hydrostatic primitive equation model, and a nonhydrostatic model that includes the horizonal component of earth's rotation vector. The results are compared and analyzed to assess: 1. the fate of the water transported across the equator in an inertial boundary current; 2. realizability and stability of a cross-equatorial inertial boundary current, its meander and retroflections; and 3. the effect of the horizontal component of earth's rotation vector on the cross- equatorial flow.